Proposal for University of New Hampshire Connection to NSFnet

The University of New Hampshire will connect their campus network to the New England Academic and Research Network (NEARnet), a regional network which is part of the NSFNET. Direct connection to NEARnet will provide researchers with improved access to the Internet and other national networks such as CSNET/Bitnet and USENET. The proposed 56,000 bit per second, dedicated, communication link will improve reliability, speed, turn.around, and flexibility for data communication functions such as file transfer, remote login, and teleconferencing. NEARnet will provide for equipment, maintenance, and information services. The University of New Hampshire will be able to integrate supercomputing and collaborative research into graduate and udergraduate curricula. In addition to the main campus at Durham, Keene State College, Plymouth State College, and the State Department of Education will be offered connectivity through already existing local networks. This project thus provides sharing of resources among the state institutions, greatly facilitates research by students and faculty, and provides a valuable resource to supplement course work.